ABR: Physiological Ecology of Cyanobacterial Microbial Consortia During Development and Proliferation of Nuisance Blooms

Cyanobacterial (blue-green algal) nuisance blooms frequently proliferate and persist for extensive (weeks to months) periods in eutrophic waters. Bloom populations characteristically form close associations with diverse microorganisms, including heterotrophic bacteria and protozoans, during various stages of bloom development and proliferation. Traditionally, such associations have been considered to represent degrees of microbial antagonism. However, current work has shown that mutually-beneficial impacts may in fact predominate. Maximum cyanobacterial photosynthetic growth and N2 fixation rates often accompany extensive bacterial and protozoan colonization of the cyanobacterial phycosphere. Specific cyanobacterial-microbial associations may well function as consortia, facilitating: 1) exchange of metabolites; 2) regeneration of nutrients; 3) localized removal of inhibitory (to N2 fixation and photosynthesis) O2 buildups; and 4) detoxification of potentially-inhibitory chelators and waste products generated within the cyanobacterial phycosphere. This new study will elucidate consortial interactions and their potential positive impacts on: 1) cyanobacterial CO2 fixation, N2 fixation and growth rates; 2) cyanobacterial bloom potentials; and 3) the ability of host cyanobacteria to maintain blooms under nutrient limited conditions. Recent microtechnological (microsensing, immunochemical, microautoradiographic) advances and applications have greatly facilitated and expanded our ability to address and characterize these interactions. Findings will be of value to managers and biologists seeking effective mitigative steps for arresting bloom potentials, including potential use of bacterial and protozoan predators/consumers as "biological control" agents.